Analysis of Giant Post-Flare Arches Observed by Yohkoh

9312023 Svestka The investigators will analyze X-ray imaging data of the sun obtained by instruments on the Yohkoh satellite. The purpose of the study is to investigate the properties of giant post-flare arches which represent an important coronal phase of the most eruptive flares on the sun. The Yohkoh soft X-ray whole-Sun and large field-of-view images, with excellent angular resolution offer a real breakthrough in the information about these structures which have energy comparable to those in coronal mass ejections. The study will address several problems related to these giant arches: their internal structure, their magnetic fields, the location of the footpoints of giant arches in the underlying magnetic field, the time of onset of a coronal arch and its mode of formation, the vertical and lateral time dependence of the process, the physical conditions in the elementary components of the arch, the association between giant arches and eruptive flares, the difference between stationary and growing arches, and the conditions for coexistence of quasi-stationary giant arches with eruptive coronal mass ejections in the same active region. The theoretical investigations will be conducted in collaboration with Japanese scientists. ***